Cardinal Invariants and Sets of Reals

These research projects concern the set theory of the real line,
a part of descriptive set theory. The principal investigator
studies various ideals of sets of real numbers. Cardinal
characteristics of the continuum and the associated families of
small sets are central to this research. Specifically, he
focuses on problems concerning the consistency of various
generalizations of the Borel Conjecture, a statement asserting
that the families of sets in question consist entirely of
countable sets. He also studies the extent of the duality
between the two classical notions of smallness: measure zero and
the first category. This problem concerns finding parallels
between the measure concepts such as strong measure zero and
universal measure zero, and their first category analogs.

The study of the structure of the real numbers marks the origins
of set theory and has been the object of systematic research
since the beginning of the last century. Concepts of measure and
category have been studied rigorously for about one hundred
years, and have been successfully used in many areas of modern
mathematics. Bartoszynski pursues several problems in this area.
These problems may yield positive answers that are theorems of
mathematics or they may turn out to be independent from the
standard axioms of set theory. The positive answers involve new
results in both finite and infinite combinatorics and have
applications reaching beyond traditional set theory to real
analysis, measure theory, and topology. On the other hand, the
independence results, particularly ones using forcing, have
applications within set theory itself.